Processes Mediating Judgements of Likelihood

Likelihood judgment plays a critical role in decisions that are made in
almost all of life's domains. Often, people must judge the likelihood of
one event when more than one alternative event is known to be possible
(e.g., the likelihood that a patient has condition A rather than condition
B, C, or D; the likelihood that a contract for a construction project will
be awarded to bidder F rather than G or H; the likelihood that a friend is
arriving on airline K rather than M or L). The proposed research will
examine fundamental processes underlying such likelihood judgments. Recent
research by the primary investigator suggests that judgments of likelihood
are often mediated by a distinct comparison heuristic; such judgments are
largely dependent upon a comparison between the strength of the evidence
for the focal event and the strongest alternative event, rather than a
weighing of the evidence for the focal event versus the aggregate of the
evidence for all alternative events. The comparison heuristic is very
efficient and generally produces reasonable judgments of likelihood.
However, the heuristic can also underlie patterns of perceived likelihood
that are not consistent with the normative dictates of standard probability
theory. Nine experiments will investigate the nature, strength, and scope
of the comparison heuristic. They will also examine how task conditions
that vary under everyday judgment situations--time pressure, the type of
response being solicited, and the quantifiability of the available
evidence--influence likelihood judgments. The experiments will involve a
wide range of paradigms and judgment types. Various methodological tools
(e.g., manipulations to the distributions of alternative outcomes, process
tracing) will allow for an assessment of the relative influence of
deliberative versus heuristic processes within manipulated conditions of
the experiments. This research should substantially advance the
understanding of processes mediating judgments of likelihood as well as
enhance researchers' abilities to predict judgments (and decisions and
behaviors) that are based on perceptions of focal events that have multiple
alternatives.